A Fundamental Study of Thin Strip Casting of Plain Carbon Steel by Spray Forming

The overall objective of this research is to establish a processing science base for the casting of steel strip by spray forming. This is a process in which atomized molten steel droplets are interrupted in flight by impacting onto a subtratge to form a coherent deposit. The research will initially investigate the spray deposition of thin strip onto planer substrates. A series of experiments and modeling studies will provide a fundamental understanding of the spray forming on thin deposits. Subsequently, a large diameter rating substrate will be used to examine the continuous casting of steel strip by spray forming. Further, the research will focus on droplet-substrate interactions during the spray forming of thin deposits having acceptable surface quality.